Hawaii Networked Learning Communities

The Hawai'i proposal expects to promote educational reform of science, mathematics and technology education in 64 rural schools, serving 44,380 students, representing 25% of the total student population in the state of Hawaii. The proposal is submitted on behalf of a consortium of higher education institutions, the state department of education, rural schools, and business and community organizations in Hawai'i and requests $191,764 over twelve months for planning and development activities.

The goal is to seek significant and sustainable improvements in standards-based science, mathematics and technology education for students in rural economically and educationally disadvantaged areas of the the state.

The objectives include:

Conducting a comprehensive assessment specifically related to the status of science and technology teaching and learning in the state.

Gathering baseline data on student achievement aligned with standards-based instruction.

Building a coalition of support and understanding for a systemic approach to improving practices.

Increasing community and business involvement in identifying local resources that need to be converged and aligned.

Expanding and deepen the use of technology and telecommunications as effective teaching and learning tools.

Generating a sustainable implementation plan for systemic reform in science and technology education.